District Eleven Weather Study Program (DEWS) of Community School District 11

Project Summary The District Eleven Weather Study Program (DEWS) is a successful science education project in the Bronx New York school system. ATM provided assistance in starting this project. The project demonstrates that when fifth-grade students are given the opportunity to participate in highly-motivational activities in weather study, they will acquire skills in basic scientific procedures, positive attitudes towards the study of science, and a greater awareness of career opportunities in sciences, especially in meteorology. Increased costs associated with the project that could not be accommodated in this year's Bronx school system budget threaten the continued existence of the project. NSF support will enable the purchase of a new facsimile machine require as a result of recent changes in the National Weather Services (NWS) policy. Also, funding will support anticipated increased costs associated with receiving satellite- imagery and weather-graphics transmissions.